ATD: Quantitative Methods for Estimating Sequencing Errors

The investigators propose is to establish a general statistical methodology to
estimate error rates for any of the existing second-generation
sequencing technologies. They have identified an approach that is broadly
applicable, fast, and easy to implement. Important strengths are that it
only requires intensity data; it is applicable to the data types that
are typically shared publicly; and it does not require the availability
of a reference genome or genomes ---a key condition in threat detection
applications.

Sequencing is a technology to read small words made out of DNA or RNA.
In may applications across biology we need to identify words that occur
in a book where they are not supposed to be (for example mutations in
cancer or pathogens in the intestinal flora). Often these 'bad' words
are similar to other words which occur elsewhere in the book, differing
only by a letter or two. As seqeuncing is not free of errors, to know
whether we are seeing a bad word or a poorly read good word we need to
know how easy it is to misread a letter. This proposal is to assess
exactly this, with the goal of providing better foundations to all
scientific research that uses sequencing.